Planning Visit to China and Japan: Building an Agenda for Public Understanding of Science

0087417
Nader

This is a two-year proposal submitted by Dr. Richard Nader and Dr. Emily Ashworth, Texas A & M University, to coordinate the U.S. communities involved in the public understanding of science to conduct a two-week series of joint dialogues and site visits, in order to: (1) understand factors impacting public understanding of science in each of the countries, (2) examine current models for achieving public understanding of science, (3) discuss the relative effectiveness of various methods, and (4) identify priorities for future collaboration on public understanding of science. The U.S. communities involved in the public understanding of science will then host a follow-up workshop in the United States. The public understanding of science is an NSF-wide initiative. It is also considered important by our counterpart countries in East Asia. The purpose of these workshops is to build an agenda for public understanding between the United States and its counterpart communities in China and Japan. The Natural Science Foundation of China, the Japan Science and Technology Agency and the NSF jointly support this project.